Acquisition of 20 Tesla Magnet System

A 20 Tesla superconducting magnet system and a Fourier Transform Infrared (FT-IR) spectrometer will be acquired with funds from the Academic Research Infrastructure Program. The magnet system will be utilized in conjunction with the UC-Santa Barbara free-electron laser, a femto-second optical laboratory, an existing dilution refrigerator, and the FT-IR spectrometer to explore nonlinear and linear magneto-optics and magneto-transport in scientifically and technologically important systems. The research focuses on: nonlinear magneto-transport in the terahertz frequency regime associated with quantum wells and superlattices in semiconductors; saturation and relaxation in semiconductor nanostructures in large magnetic field; linear and nonlinear spectroscopy of vortex cores in high temperature superconductors; magneto-spectroscopy of self-organized quantum dots; spectroscopy of quantum wire superlattices; magneto-luminescence and magneto-absorption experiments in spin-superlattices; quantum hall effects in mesoscopic structures; and magneto-transport and the metal-insulator transition in conducting polymers. An acquired 20 Tesla superconducting magnet system, used in conjunction with a free-electron laser, a femto-second optical laboratory, an existing dilution refrigerator, and a new acquired Fourier transform infrared spectrometer, will be used to study a range of topics in the magneto-optic and magneto-transport areas concerning semiconductor superlattices, quantum wells and quantum dots as well as high temperature superconductors, one-dimensional conducting polymers, and spin superlattices.